Synthetic Methods Based on Nickel Metallacycles

The Synthetic Organic Program is awarding a grant to John Montgomery at the Department of Chemistry, Wayne State University. This grant will continue his research into asymmetric nickel-catalyzed cyclizations. Mechanistic studies and the development of new catalytic, enantioselective processes will be pursued. The preparation of a number of (poly)cycles to illustrate the utility of the methodology will be carried out.

Professor Montgomery's research provides an excellent training ground for students in organic and organometallic chemistry. These students then enter the pharmaceutical and chemical workforce, as well as academia. This research into nickel-catalyzed cyclizations to form new cyclic compounds is most likely to find applications in the preparation of pharmaceutical agents.